RUI: Highly Parallel Constraint Logic Programming for AI and MIP Applications

This research has a three-fold goal: (1) to develop tools for building intelligent systems that require tightly coupled logical and numerical computation; (2) to apply mathematical programming and constrained optimization techniques to do logical inference and, (3) to test the efficacy of highly parallel constraint logic programming systems in this arena. Constraint logic programming (CLP) provides a natural paradigm to link logical computation and numerical computation. This research is based on compact CLP languages which are supersets of linear and integer programming and support the data structures necessary for mathematical programming rather than on constraint based extensions to Prolog. The fit between the applications and constraint logic programming opens up several avenues for parallelism, since logic programming systems have direct hooks into both or-parallelism and and-parallelism.